Engineering Foundation Conferences on Engineering Curriculum

These Engineering Foundation Conferences, to be held annually, are a response to the need for forums for interaction and exchange about innovation in undergraduate engineering education. Each of the conferences will bring engineering educators together to exchange ideas, problems and solutions about engineering education and is expected to stimulate more and better innovation. A proceedings of each conference will be published and given broad distribution within the engineering education community. The format for planning and holding the conference is designed to encourage presentation and discussion of recent developments to reduce the time required to include new ideas in undergraduate offerings. The grantee and the institutions of the conference participants are expected to provide support for the conferences that is several times the funds requested from NSF for this project.